Symposium: Keto Acid Dehydrogenase Compleses; November 16-18, 1988; Austin, Texas

Funds will be used for partial support of travel expenses of participants to this important conference on multienzyme complexes.